DPF Student Travel Support for 2012 APS meeting; Atlanta, Georgia; March 31 - April 3, 2012

The Division of Particles and Fields (DPF) of the American Physical Society will provide for partial support of the travel expenses of student presenters at the 2012 APS meeting being held on March 31-April 3, 2012 in Atlanta, Georgia.